Preliminary Research on the Safety of Steel Connections Using System Reliability Techniques

This project is a planning grant to determine the reliability of steel connections. This portion of the project entails contacting designers and fabricators to obtain data on the many various types of steel connections.